Expansion of the National School Volunteer Project in Science, Mathematics and Technology

The Triangle Coalition for Science and Technology Education has requested support for a two-year project to expand a pilot project designed in 1988 into a systematic and replicable mechanism nationally that advances institutional change locally through a collaboratively planned and implemented volunteer program in science, mathematics, and technology. They propose a two-stage expansion: Phase I involving 20 - 30 project sites, perfecting pilot training procedures and materials. Phase II involving an additional 100 sites using the procedures and materials developed in Phase I. The Foundation's support represent less than 10% of the anticipated project costs, with the private sector contributions estimated to be on the order of several million dollars.